Mineral Education Program For Young Scholars

9452731 Ripley The Montana College of Mineral Science and Technology (MONTANA TECH) will initiate a 4-week, summer residential, Young Scholars Project in earth science for 24 students entering grades 9, 10, and 11. The Mineral Education Program for Young Scholars (MEPYS) immerses rural students from Montana, Idaho, Wyoming, North Dakota, Utah and Washington in the field and laboratory activities of hydro-geology and the associated areas of geological, mining, metallurgical, mineral processing, petroleum, and environmental engineering. The program provides students with first-hand research experience in mineral education under the direction of practicing scientists and engineers who have chosen these career areas.